Mathematical Sciences REU Site: Research Experiences in Geometry and Topology

DMS-9423945 Kalka This REU site award provides support for three undergraduate researchers in mathematics. Research will be in an area of geometry or topology. The program will run for eight weeks. Students will participate in a seminar series and will each give a presentation. In addition, a visitor will be brought in from outside this university to interact with the students.